Acquisition of Gas Chromatograph-Mass Spectrometer (GC/MS) and Computational Workstations for Undergraduate Research in Chemistry

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of North Carolina in Asheville will acquire a gas chromatograph mass spectrometer (GC/MS) and a Linux cluster. This equipment will enhance research in a number of areas including a) unimolecular and bimolecular gas-phase reactions of halocarbon species; b) bonding in metallocenes; and c) catalytic conversion of vinylcyclobutenes to cyclohexadienes.

Gas chromatograph with mass spectrometric detection (GC/MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at the University of North Carolina in Asheville, a primarily undergraduate institution.